REU Site: A Multidisciplinary Research Experience in Engineered Bioactive Interfaces and Devices

Proposal: 0851716
PI Name: Anderson, Kimberly W.

This three year REU Site program at the University of Kentucky Research Foundation will provide undergraduate students with a multidisciplinary research and education experience in the area of Engineered Bioactive Interfaces and Devices. The students will learn about three cross-disciplinary research themes that form the foundation of research in this area. These include: 1) Novel Bioactive Architectures; 2) Cell/Protein interactions at Interfaces; and 3) Integration into Therapeutic and Diagnostic Devices. The specific objectives of this program include: 1) providing the students with interdisciplinary mentoring and research training; 2) stimulating the students' interests in Ph.D. careers in science and engineering through seminars, field trips, and interactions with both graduate students and faculty; and 3) developing the students' independence and confidence through participation in research, journal clubs, in-house presentations and scientific meetings.

Students will be recruited from various undergraduate disciplines including engineering, biology, chemistry and physics. The PI will make special efforts to attract women and minorities to this program.

?This site is co-funded by the Department of Defense in partnership with the NSF REU program.?